Probabilistic and Dynamic Combinatorial Optimization Problems

Research focuses on probabilistic combinatorial optimization problems and dynamic routing problems with queueing effects. Included are two areas: (1) worst-case analysis of heuristics; and (2) multi-server and multi-facility probabilistic combinatorial optimization problems. It will be shown that the concepts developed for probabilistic combinatorial optimization problems can be used for optimization of queueing systems and the design of dynamic routing strategies. Research should lead to significant progress and expansion of knowledge and have an impact on producing more efficient distribution and communication systems.